Theoretical Studies in Interstellar Astrophysics

The dynamics of the interstellar medium on small and intermediate scale sizes is governed by energy injection from stars, particularly the ionizing radiation, winds, and supernova explosions of massive stars. The evolution of ionized hydrogen regions, both around isolated massive stars and clusters of such stars, in an inhomogeneous medium will examined by Dr. McKee. The dynamics and spectra of the remnants of supernovae which explode in ionized hydrogen regions will be calculated, and the implications for the observed statistics of remnants assessed. Supernovae from a cluster of massive stars create a "superbubble" in the interstellar medium; the dynamics of such structures will be investigated, with applications both to the Galaxy and to starburst galaxies. A powerful new hydrodynamics computer code will be used to address some fundamental problems in interstellar gas dynamics posed by energy injection, including the interaction of a blast wave with an interstellar cloud. The spectra of interstellar shocks provide astronomers with essential diagnostic tools for the study of the effects of stellar energy injection, and a comprehensive attack on the structure of shocks in molecular gas is planned. Extensive calculations will develop the hypothesis that interstellar water masers are due to shocks in dense molecular gas. Stars energize the interstellar medium through radiation and stellar wiinds during the star's life, and for some stars, through supernova explosions at their death. This energy is eventually radiated into intergalactic space, so the energization of the interstellar medium may be viewed as an energy flow which originates in stars in several forms, streams outward through the interstellar medium, and finally leaves the Galaxy in the form of radiation, cosmic rays, and in extreme cases, a wind. One of the central problems in interstellar astrophysics is to understand how stellar energy injection produces the physical conditions and morphology of the interstellar medium, both in our Galaxy and in other galaxies. Dr. McKee's research will focus on energy injection by massive stars, which dominates the energy injection into the interstellar medium.